Enhancing CS Faculty Members' Knowledge of the Laboratory Approach to Teaching Computer Science

9353936 McGregor The project will support activities that enhance the knowledge of faculty concerning the laboratory approach to teaching computer science. During a summer workshop, faculty will develop laboratory activities, class-test them over an academic year, and evaluate and refine them during a second summer workshop. One of the content threads along which faculty will create activities is the area of multiprocessing. ***